RUI : Shell Structure of Exotic Neutron-rich Nuclei

This is a project engaging Ursinus College undergraduates in
experimental nuclear structure research. The project is part of an
ongoing collaboration with colleagues at the National Superconducting
Cyclotron Laboratory (NSCL) and Florida State University (FSU)
involving experimental work at the NSCL. We will investigate shell
structure in exotic, neutron-rich nuclei via one-proton knockout and
inverse-kinematics proton scattering measurements at the NSCL.

The protons and neutrons that compose an atomic nucleus fill a series of
shells similar to the shells filled by atomic electrons. Many nuclear
properties are determined by shell structure including the shape of the
nucleus, the energies and lifetimes of excited states, and the degree to
which protons and neutrons act in concert in excitations. Recent
investigations of exotic nuclei with many more neutrons than protons
have revealed that nuclear shell structure can shift with increasing
neutron number. The proposed work will help to expand the understanding
of the evolution of shell structure away from stability.

A central goal of the project is to maintain an active research
program in nuclear structure on the Ursinus College campus. Ursinus
College is a national liberal arts college of about 1600 students with
a long history of strength in the sciences. This project will provide
students opportunities to apply their knowledge of physics outside the
classroom, gain practical skills in data acquisition and analysis,
observe and participate in the operation of a nuclear accelerator
facility, and present their work to colleagues. Participants will
travel to the NSCL to perform experiments and analyze the data at
Ursinus. They will present their results to the Ursinus community as
part of the Ursinus College Summer Fellows Program and to the nuclear
physics community at American Physical Society/Division of Nuclear
Physics meetings.